Physics of Multi-Bubble Sonoluminescence and Sonochemistry

The subject of multibubble sonoluminescence, where numerous bubbles created by transient cavitation grow and then collapse emitting light and also causing chemical reaction, is modeled using smooth particle hydrodynamics and including 19 chemical reactions of 9 chemical constituents.